Magic School Bus Museum Collaborative

9353565 Sanford The Magic School Bus Museum Collaborative, requests through Discovery Places, Inc., NSF support for six science museums and Scholastic Productions, Inc., to develop science education materials that capitalize on the interest and excitement in the forthcoming Magic School Bus television series and the Magic School Bus books. Over a three year period the collaborative will provide basic science education activities and demonstrations through museum educational programming. The collaborative will provide tools and support for teachers to use the Magic School Bus themes in their science curriculum and provide hands-on science classroom experiences using mobile museum exhibits. Working with the National Urban League, ASPIRA, the AAAS Black Church Project, and other youth serving organizations, the collaborative will encourage multi-ethnic participation in these museum programs. The numbers of children and their families who will be reached by the Magic School Bus Museum Collaborative are significant. The components of the project are a planetarium program (100 copies), two 1200 square feet traveling exhibits, and activity and programming guide, table-top exhibits and program, and 2 teacher enhancement workshops. Collectively, these components can reach conservatively over 5 million museum visitors in the first year. Coupled with the new television series, the Magic School Bus can have a tremendous impact on the education of young people in the sciences. ***